The effects of processing condition and fatigue on ultra-large self thermal plastic deformation in NiTi shape memory alloy fiber actuated aluminum metal matrix composites

A coupled materials processing - experimental
testing - mathematical modeling program will study how variations in
processing time-temperature conditions effect the strength of the
self thermal-plastic response of NiTi shape memory alloy fiber
actuated aluminum metal matrix composites, and will investigate how
the development of very high internal stresses in the material
influence mechanical fatigue behavior. Preliminary results have
shown that a properly processed and prepared NiTi shape memory alloy
fiber actuated aluminum metal matrix composite (SMA-MMC) will exhibit
very large, self imposed thermal-plastic compressive deformation
under heating. Unfortunately, very little is presently known about
the processing sensitivity and thermo-mechanical-fatigue behavior of
the material. We therefore propose the following three major tasks:
Task 1: Systematically measure how controlled variations in high
temperature hot press consolidation processing conditions effect the
shape recovery of the resulting SMA-MMC, and determine the
mechanism(s) responsible for the material performance changes. Task
2: Perform a tensile cycle fatigue endurance study, identifying the
fatigue damage development process in the material. Task 3:
Mathematically model the self thermal plastic response of the
material accommodating general variations in matrix strength, matrix
flow properties, fiber volume fraction, fiber transformation
properties, and temperature histories. The overall goal of the
program is to provide a quantitative design tool for the scientific
development of safety and cost critical commercial and military
applications.